Mathematical Sciences: Random Walks and Hydrodynamic Scaling

The statistical mechanics of various dynamical systems is an important area of research which has seen a high concentration of recent active research. The major objective of this research is to develop estimates for physical dynamics where the random walks contribute microscopically. These random noises will behave differently under different scales, and therefore provide models for various physical phenomena. The estimates to be developed will help control the magnitude of the fluctuation fields introduced by the random noises at different scales. It will also allow a quantification of the evolution behavior under different scale and a better understanding of chaotic structures. Many models of physical phenomena are being explained by the interaction of particles at the microscopic level. Different interactions at the microscopic level lead to different macroscopic structures. The study of these models leads to fundamental progress in material sciences, chemical engineering and biological engineering. This research is a continuation of the study of the random interaction between particles in statistical mechanics.